CONVERGE: Training for Participatory, Problem-Focused, Solutions-Based Natural Hazards and Disaster Research

This grant will support evidence-based trainings and convenings that strengthen the nation’s hazards and disaster research workforce. Hurricanes, floods, wildfires, and other natural hazards endanger people and infrastructure across the United States, and, on average, a major disaster now occurs every 10 to 15 days. As disasters increasingly threaten Americans’ health, well-being, and economic prosperity, there’s an urgent need for research that is participatory (people-centered, ethical, fair) and convergent (interdisciplinary, problem-focused, and solutions-oriented). This type of research can support the public in their preparation, response, recovery, and resilience-building efforts. Since 2018, the Natural Hazards Engineering Research Infrastructure (NHERI) CONVERGE initiative has promoted progress in science and engineering through the development of a suite of widely accessed resources, including training modules, check sheets, open data workshops, and webinars that teach the fundamentals of hazards research and disaster reconnaissance. CONVERGE also convenes virtual forums with researchers and research teams after major disasters to encourage collaborations that are responsive to pressing scientific questions and local research needs. These efforts contribute to preparing scientists and engineers with the skills to holistically characterize natural hazards risk and co-develop community-centered research projects and interventions.

This grant will help ensure that students and researchers have access to high quality, evidence-based training materials and convening opportunities to advance participatory convergence research in the hazards and disaster field. The objectives of this grant are to (1) enhance knowledge and core capabilities among hazards and disaster researchers, (2) co-develop research priorities and protocols, and (3) widen community engagement to accelerate risk reduction efforts. This award will support the production, dissemination, and evaluation of new CONVERGE Training Modules and Extreme Events Research Check Sheets. These materials synthesize existing bodies of scholarly evidence to increase the knowledge, skills, and abilities of the research workforce. This award will also convene members of the research community and their partners to clarify research priorities before and in the aftermath of disaster. These convenings will identify data gaps and needs at the interface of multiple disciplines and document research areas with the greatest potential for major breakthroughs in science and engineering. The award will culminate in new guidance and interactive approaches to involve people who are vulnerable to natural hazards, decisionmakers, and other key stakeholders in hazards and disaster research and its applications. Such engagement is fundamental to advancing knowledge and accelerating multidirectional information exchange and technology transfer to reduce disaster risk.